Renovation of Student/Faculty Research Spaces at Centre College

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This award supports a renovation project to provide infrastructure improvements to student/faculty research spaces in synthetic chemistry, psychology, and psychobiology, at Centre College of Kentucky. The renovation will be located in Young Hall, a 56,000-square-foot building housing the biology, biochemistry and molecular biology, psychology, psychobiology, and synthetic chemistry programs. The renovation will consist of 3,983 square feet of research space: a lab for the synthetic chemistry program, eight labs for psychology and psychobiology, and a suite of six student research spaces. This proposal is part of a larger initiative at Centre to increase dedicated research space and to enhance faculty research in scientific disciplines, as evidenced by the construction (now underway) of a 40,000-square-foot addition to Young Hall that will include both teaching and research spaces. The space to be renovated by this award was constructed in 1970. The proposed renovations consist of fume hoods, cabinetry, shelving, doors, and other items, and will bring the older areas up to modern research standards.

The renovation will support collaborative student/faculty research on the reduction of pollutants via the use of benign solvents, research on attentional disorders and corrective techniques, and research on pre-trial jury bias and change-of-venue petitions. Centre College's students come from a variety of economic backgrounds, and the institution has a growing number of students from underrepresented ethnic groups. The facility will improve research opportunities for undergraduate students.